Mathematical Sciences: Studies in Commutative Algebra and its Applications

This award focuses on theoretical aspects of commutative algebra and seeks to make use of them to break the logjam of complexity in several problems of computational algebra. The principal investigator will: (a) extend the role of Koszul homology in the structure theory of Cohen-Macaulay singularities, (b) investigate the structure of algebras of linear type, (c) examine the equations of Rees algebras of various kinds, (d) study the invariants and singularities of commuting varieties of Lie algebras and their representations, and (e) exploit some novel means of converting graph-theoretic data into ideal-theoretic structures. Concomitantly, he will investigate roles for the recent discovery of closed formulas for computing radicals, equi-dimensional decompositions and a method to compute normalization that is free of generic projections, with accompanying algorithms, in the development of algebraic/numerical equation solvers. This project is in the general area of commutative algebra and the computer-aided computational aspects of this field. There is a growing interest in using computers to answer theoretical questions in algebra and conversely, algebra is quite useful for the development of algorithms. This project makes serious use of both the theory and practice of symbolic calculations to solve real problems in commutative algebra.